Analytical Study of Phase-Sensitive Solitary Wave Behavior

9804814
Miller

This study concerns the behavior of solitary-wave (pulse) solutions to
certain nonintegrable Nonlinear Schrodinger-type partial differential
equations that have drawn attention from physicists and engineers in
recent years, particularly in nonlinear optics applications. The study will
focus mainly on systems that model pulse propagation in parametric
waveguides made of materials with quadratic nonlinearity. These
equations share the property that their solutions show highly phase-
sensitive behavior (for example in collision outcomes). One part of the
study will investigate the existence and stability of travelling waves for
certain systems, using variational techniques and detailed eigenvalue
analysis of linearized operators. A second part of the study will involve
the development of ordinary differential equations as models for phase-
sensitive pulse behavior, including collisions between two quadratic
pulses.

The equations to be studied arise in fiber optics; their solutions model light
pulses travelling down a fiber. They are of interest to optical scientists and
engineers because they model light pulses that are unusually narrow and
require unusually low energies to produce; the hope is that many such
pulses could be packed closely together to increase the speed of data
transmission through optical fibers. This study will address fundamental
properties of these pulses by identifying factors important for predicting
their stability (when a pulse is affected by noise and interactions with the
fiber and other pulses, to what extent does it retain the pulse shape
necessary to transmit information?) and their behavior in collisions (when
two pulses meet each other head-on).